Analysis of the B Cell Receptor Complex

The long term objective of this research is to elucidate the molecular mechanisms by which membrane immunoglobulin generates proliferative or inhibitory signals to the interior of the B lymphocyte in response to antigen binding at the surface. Since the membrane immunoglobulin receptor shares many characteristics with tyrosine kinase dependent growth factor receptors, an understanding of the molecular mechanisms involved in B lymphocytes will benefit the greater community of cell biologists by contributing to an understanding of proliferative control in a wide variety of cell types. In particular, preliminary evidence which suggests that membrane immunoglobulin heavy chains are linked to a diverse group of proteins, some of which are src family tyrosine kinases, while others appear to be cytoskeletal constituents will be pursued. Biochemical and immunological methodologies will be employed to explore the molecular topology of membrane immunoglobulin and membrane immunoglobulin-associated proteins. A particular focus of the project will be the possibility that the function of membrane immunoglobulin may be controlled by structural associations which are dependent upon receptor clustering. %%% Most types of living cells respond to external signal molecules such as hormones or growth factors by undergoing a cascade of biochemical changes that result in various physiological changes. Growth factors, for example, are signals that trigger a chain of biochemical events leading to cell division. The steps in such cascades of events are generally referred to as "signal transduction". This project will study the early events in signal transduction following binding of a signal molecule to its specific receptor protein in a cell membrane. The specific goal is to identify and characterize molecules in the cell membrane or in the cell's interior (for example, protein molecules that constitute the cell's internal skeleton) that bind to and/or chemically modify the receptor and each other after the receptor binds its signal molecule. Identifying the cellular components that interact with this receptor in response to a signal should contribute substantially to our understanding of the mechanisms of signal transduction in cells.